SHF: Small: Algorithm/Architecture Co-Design of Low Power and High Performance Linear Algebra Compute Fabrics

Until recently, the speed of a computer processors could be increased
by packing more transistors into a smaller area and increasing the
frequency. This trend is now unsustainable because of power
constraints, with only moderate gains going forward even when putting
hundreds or thousands of traditional cores onto a chip. Thus, how to
reduce power consumption while increasing performance is one of the
core concerns. It is well-accepted that specialization (designing
parts of the processor for a specific task) and heterogeneity
(designating different parts of the processor for different tasks) can
lead to orders of magnitude improvements in both aspects. However,
the question is whether such efficiency can be maintained while
providing enough flexibility to implement a broad class of operations.
Leveraging unique domain expertise, research under this project
addresses this question for the domain of matrix computations, which
are at the core of many computational advances, both in scientific
high-performance computing as well as in the embedded, mobile or
cyber-physical domains.

Observing that the largest benefits can be obtained through
specialization at the foundations, this project is aimed at
co-designing algorithms and architectures to directly realize basic
linear algebra methods in an optimized combination of hardware and
software. By designing a specialized Linear Algebra Processor (LAP),
it is possible to achieve one to two orders of magnitude improved
efficiencies compared to traditional or proposed computer
architectures. The questions that the project will answer, through a
combination of analysis, simulation, and prototyping, include: (1) How
to best design such LAPs that can efficiently execute the full set of
linear algebra routines; and (2) How LAPs can be scaled, networked
into clusters and integrated with application software running on one
or more host processors. The broad goal of this project is to develop
novel, integrated linear algebra compute fabrics that are co-optimized
and co-designed across all layers ranging from the basic hardware
foundations all the way to the application programming support through
standard linear algebra software packages. This project is expected
to result in a leap in computational science and discovery
capabilities, thus enabling novel breakthroughs in industry, for the
consumer, at the national labs, in education and by scientists in
academia.